Mathematics Teacher/Researchers Collaborating for Collaboration in the Classroom (MTRC3)

This four-year project aims at establishing a county-wide network of secondary mathematics teachers whose ongoing work will be to support the teachers of Onondanga County (Syracuse, NY) as they introduce and maintain programs of modern mathematics in the county's high schools. To these ends, 42 well-prepared mathematics teachers will be selected for a program designed to strengthen their mathematical background, expand their pedagogical repertory, and enhance their leadership skills. The program will begin with an initial group of 18 teachers (2 from each of 9 schools) attending a 4-week residential summer institute at the University of Syracuse with two major foci: (1) helping teachers modernize their classroom instruction (e.g. involving their students actively in doing mathematics); (2) professinalizing teaching by asking teachers to reflect on their own classroom practices, involving themselves in professional societies, and the like. Participants will also study mathematical content -- with emphasis on the importance of connections between diverse topics; solve (real world) mathematical problems in small groups; explore the uses of technology to aid in doing mathematics; create lessons and units for use in their classrooms; learn new and appropriate ways of assessing student progress in mathematics. During the implementation phase in the ensuing academic year, project staff will lend support to the participating teachers in a series of 12 half-day workshops. In the second year, the program described above will be repeated for an additional 24 teachers. Participants from the first summer program -- after additional training -- will act as mentors to this second group of teachers. In the third and fourth years of the project, the entire group of participating teachers will have formed teams (of 4 to 14 members) to initiate and maintain implementation and dissemination efforts throughout their respective districts. Project staff will provide a variety of support for these efforts. It is expected that the network of teams thus established will continue its work after the end of the grant. Cost sharing is 30%.